Delta Doped Layers in GaAs - Ft Monmouth

This research concerns the growth of n-type "delta-doped" layers in GaAs by molecular-beam epitaxy (MBE). These layers approximate fixed charge sheets when depleted, and they can be used to fabricate shallow, non-alloyed, n-GaAs ohmic contacts or novel bulk-barrier devices.